Research Program in Experimental Elementary Particle Physics

The University of Kansas (KU) experimental particle physics group continues its work at
the frontiers of the field, preparing for data-taking with the CMS detector at CERN's Large Hadron Collider; taking and analyzing data with two currently running experiments: D0 at the Fermilab Tevatron and CLEO at Cornell's CESR facility. In addition, the KU group is involved in development work for an international linear collider (ILC) detector and radio Cerenkov detection techniques for particle astrophysics. On CMS, the KU group has worked on central silicon tracking and will work on elements of the detector control system and the online DAQ system and tracking algorithm development. On the D0 experiment, Kansas has made major contributions to the recent major detector upgrade and group efforts on the tracking trigger and tracking algorithms will continue. With CLEO, the group will continue to focus on radiative quarkonium decays. Linear collider work focuses on electromagnetic calorimeter design concepts. In particle astrophysics, efforts on radio detection of cosmic neutrinos is the group's focus. The group is involved in a major outreach project, the Quarked effort ( see www.quarked.org), which is a multimedia project to bring the excitement of particle physics to elementary school students. And the group is a long-standing member of QuarkNet.